Biogeography and community structure in mussel beds at Pacific hydrothermal vents

Intellectual Merit. Funding is requested to continue community structure and
biogeographic analysis of organisms associated with hydrothermal vents. Work
completed to date has led to the acquisition of a unique, quantitative assessment of
diversity and faunal similarities and differences among vent and seep mussel beds from
vent sites along the East Pacific Rise and the Mid-Atlantic Ridge and seep sites in the
Atlantic and Gulf of Mexico. These samples provide a rich context within which to
interpret the faunal composition and structure in mussel beds in an area south of the
Easter Microplate (38S) and in the Lau and Fiji back-arc basins. Specimens will be
collected using our standard gear from two discrete mussel beds at each of the 3 primary
sites. Once collected, samples will be processed using the standard protocol established
in our lab, and identified with the help of the extensive voucher collection maintained at
The College of William & Mary, and with the aid of taxonomic specialists as necessary.
A subset of appropriately preserved sorted samples will be made available for molecular
analyses, which will be undertaken in collaboration with R. Vrijenhoek. Molecular
analyses will focus on taxa where there is a need to test for cryptic species or phenotypic
plasticity and selected other taxa of interest to Vrijenhoek and Van Dover, in addition to
the suite of taxa that Vrijenhoek is separately funded to analyze (primarily tubeworms,
mussels, crabs, clams). The proposed community structure and faunistic analyses will
contribute to our understanding of the degree of evolutionary alliance of vent faunas
within the Pacific Ocean basin and to potential barriers or conduits to dispersal. The
work is of particular interest because the study sites have been strategically chosen to
address biogeographic issues relating to the degree of isolation of adjacent back-arc basin
systems, the relationship of these back-arc faunas to the most-southern-known vent
faunas on the mid-ocean ridge (at 38S), and the relationships among these faunas and
sites already studied north of the Easter Microplate on the East Pacific Rise.
Broader Impact. Numerous undergraduates and graduate students will benefit from
participation in field programs and analysis of samples. Aspects of the research are
incorporated into the PIs undergraduate and graduate teaching. Results will be published
in the professional literature and will be made available to the public through web-based
resources and through public lectures by the PI and her students.